Logic Synthesis of Low-Power Circuits

This research is on techniques and tools for automated logic design of low-power, semi-custom circuits. Digital circuits are specified as models in hardware description languages that can be readily compiled into finite-state machines. The latter are described by transition diagrams or by synchronous logic networks. These models are then used to solve logic synthesis problems in encoding sequential circuits, restructuring logic networks, and library binding. Tools for a comprehensive EDA system for low-power design are being developed.